Replacement of a 500 MHz NMR Console at Florida State University

Funds are requested to replace an existing Varian VXR 500-S 500 MHz NMR spectrometer console, which is part of the Chemistry Department NMR Facility at Florida State University. Our objective is to replace the existing console with one having three independent radio frequency (rf) channels, waveform generators for each rf channel, and a three-axis pulsed-field gradient accessory. To take advantage of the additional hardware capabilities, we will also purchase a total of three new double- and triple-resonance probes and an off-line Silicon Graphics Indy workstation out-fitted with an external hard-drive and a CD recorder. The 11.7 T Oxford super-conducting magnet, which has very good drift and lineshape specifications, will not be replaced. To optimize the lineshape of the water resonance in biological samples, a new room-temperature shim set will be purchased. This course of action will substantially enhance the overall capabilities of the instrument in a cost-effective manner, while retaining the desirable functional components of the existing system. The replacement spectrometer console will be used for solution studies of ( 1 ) glycoprotein structural biology, (2) protein folding, (3) protein-solvent interactions, (4) RNA structure, (5) structures of RNAprotein complexes, and (6) larger organic molecules.